Core Model Theory

Abstract:

Core models are generalizations of Godel's Constructible Universe.
Jensen's pioneering work on the fine structure of core models and on
techniques for constructing core models with large cardinals has led to
many applications in diverse parts of set theory. More recently, Martin,
Mitchell, Steel, and others have extended earlier work on core models to
the level of Woodin cardinals. The investigator's questions concern 1)
the combinatorial structure of core models, 2) the application of core
model techniques in determining the large cardinal consistency strength of
various set theoretic statements, 3) the application of core model
techniques in descriptive set theory, 4) problems in infinitary
combinatorics, forcing, and model theory that were in part inspired by his
earlier work on core models.

The most widely accepted theory (system of axioms) of sets is known as
ZFC. Kurt Godel is famous for having shown that if ZFC is consistent,
then ZFC is incomplete in the sense that there are statements which are
neither provable nor refutable in ZFC. This is particularly striking
since all of mathematics can be expressed in the language of sets and most
mathematicians work exclusively within ZFC. There are important open
questions that are not decided by ZFC. The most famous example is Georg
Cantor's Continuum Problem, which Godel showed cannot be answered
negatively in ZFC and Paul Cohen showed cannot be answered positively in
ZFC. (Cohen received a Fields Medal for this work.) There are many
interesting extensions of ZFC and the relationships between them are quite
complicated. The investigator's project has to do with a natural
hierarchy of axioms known as the ``large cardinals''. Many beautiful
results, including some longstanding conjectures, were proved by a number
of researchers using ZFC and large cardinals in the 1980's and 90's;
further success is anticipated. And, also, details of how the various
theories of sets are related have been discovered by comparing these
theories with the large cardinal hierarchy.